Science Workshop on Scientific Drilling in Lakes Malawi and Tanganyika, East Africa

This proposal is a request for partial support for an international workshop entitled "Scientific Drilling on Lakes Malawi and Tanganyika." The meeting is co-sponsored by the International Continental Drilling Program (ICDP) and the International Decade of East African Lakes (IDEAL) Project. The conference will (1) refine the scientific goals for drilling in these lakes, (2) develop linkages for add-on science, and (3) advertize prospects for scientific drilling on these lakes to the earth science community both inside and outside of Africa. Logistical and engineering aspects of drilling will also be examined and discussed.